ITR: KDD Workshop

Information Technology will be playing an important role in addressing the research problems relevant to national security. The National Science Foundation will be calling upon its research communities to focus their research efforts on problems relating to national security. NSF has identified current projects that are important to this area, including but not limited to the following: Knowledge Discovery and Dissemination (datamining, knowledge representation, and knowledge sharing) and Biological Defense (bioinformatics, biosensing, pathogen normalcy baselining). This workshop is designed to bring selected university researchers together with NSF and other appropriate government staff to communicate their needs and get community input. CNRI will hold the workshop in order to assess some of the current programs and projects, gather government input, identify which projects hold the most relevance to the mission, and help identify new areas of research.